EI: Enhancing the CS Undergraduate Curriculum to include data mining and information retrieval

EIA- 0119469
Ophir Frieder
Illinois Institute of Technology

Educational Innovation: Enhancing the CS Undergraduate Curriculum to Include Data Mining and Information Retrieval

This project involves the development (and introduction into the undergraduate computer science curriculum) of two new courses: Data Mining and Information Retrieval. In this sequence, students build systems that implement key data mining and information retrieval algorithms and learn how to apply these algorithms to solve real-world problems. At the end of this sequence, students understand and use the fundamental algorithms and existing state-of-the-art in web search engines, intranets, data mining, and customer relationship management. Two significant group projects provide students with experience as participants of a software development team. These projects enable larger implementation achievements that further the understanding of algorithms, implementation trade-offs and software project management. In addition, such a group project is a critical experience that future employers and graduate schools look for.